Acquisition of a High-Speed Imaging System for Experiment Visualization

Abstract- Chen CTS-9724338 A high-speed imaging system is acquired for use in research and instruction. Research areas include coal ignition and combustion and heat transfer.